U.S.-Japan Joint Seminar: Electromagnetic Interference in Highly Advanced Social Systems / Honolulu, Hawaii / August 1988

This award will support the participation of eight U.S. scientists in a seminar on Electromagnetic Interference in Highly Advanced Social Systems, organized jointly by Professor Stephen Sebo of Ohio State University and Professor Tatsuo Kawamura of the University of Tokyo, Japan. United States, Japanese and invited third-country participants will meet in Honolulu, Hawaii during August 1988. The seminar will focus on understanding of electromagnetic pulses caused by power transmission systems, natural lightnings and nuclear explosions; measurement techniques of electromagnetic fields covering a broad frequency range, including procedures and standardization; and,the environmental effects of hazardous electromagnetic fields and their impact on society. Many key elements of highly advanced social systems (e.g., electric power systems, communication and information systems, national security) are sensitive to electromagnetic interference. Yet, the nature of such interferences, and their biological and societal impacts, have never been systematically addressed. This seminar will provide a forum for the exchange of research results and ideas. Discussions on the standardization of measuring techniques and the evaluation of measured results should prove particularly valuable in advancing the field.